Constraint Imperative Programming Languages for Building Interactive Systems

This is research aims at the development of constraint imperative programming languages for building interactive systems. A constraint language allows the programmer to specify relations that are to be maintained by the underlying system. The development of a constraint imperative programming (CIP) approach has been developed to integrate the constraint and imperative paradigms. This work will attempt to improve exiting speed by development of a compiler for object-oriented CIP languages to produce efficient code. The research will investigate how the sequence of actions to be taken for a given user input can be represented in a constraint imperative environment. The work will include the investigation of tools for writing, browsing and debugging constraint imperative programs.